Settlement '94-Conference on the Topic of Vertical and Horizontal Deformations for Foundations and Embankments; to be held at College Station, Texas on June 16-18, 1994

9321612 Briaud The objectives of this conference are: 1. to bring together engineers to hear and discuss the latest developments in deformations under foundations and embankments; 2. to collect and disseminate the latest contributions and observations in the field, 3. to evaluate, organize and document the ability of the profession to predict the behavior of footings on sand by organizing a prediction event. ***